Local Atomic Arrangements in Alloys and Intermetallics

The role of coherency strains in phase formation is examined using sophisticated X-ray scattering techniques. The initial stages of phase formation involve formation of locally ordered regions or clusters. Coherency strains can affect the compositions of these clusters and modify the phase diagram. Lattice parameters are measured in the nickel-vanadium alloy system to monitor matrix composition and precipitate composition as a function of bulk composition and temperature. Coherency strains are expected to have a role in determining surface segregation. Local order near crystallographic surfaces is examined in copper-gold, Cu3Au, and compared to the bulk. %%% This research provides greater understanding of the factors that influence the surface and bulk microstructure and properties of materials.